ITR: Development of a General and Effective Program for Electron Collisions with Atoms and Ions using a B-Spline Approach with Non-Orthogonal Orbitals

The research is aimed at the further development of a B-spline, non-orthogonal orbital approach to atomic R-matrix calculations. If successful, the new approach will eliminate many of the major problems associated with the pseudoresoances which plague all sophisticated R-matrix applications.